Dartmouth Research Experiences for Undergraduates in Chemistry

9322017 Walters Darmouth College Dr. Michael A. Walters and other members of the Chemistry Department of Dartmouth College are being refunded to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1994-6, ten undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry-analytical, inorganic, organic, physical and biochemistry. The students will be drawn nationwide.